Dissertation Research: Molecular Phylogeography of Neotoma fuscipes

9800944 Patton Using molecular genetic techniques and field studies, the investigators will examine how historic and current ecological and demographic factors have influenced the evolutionary diversification of Neotoma fuscipes, the dusky-footed woodrat. In two ecologically distinct regions, aspects of life history that affect the distribution of genetic variation within and among local populations will be studied. The distribution of genetic diversity throughout the entire species range will also be investigated. Studying both local and broad scale patterns of genetic variation will give unique insight into the diversification of this species and will add to understanding of the evolution of Californian biodiversity. Data from this study will also help guide the management of several subspecies of N. fuscipes that have special conservation status.